Mathematical Sciences: Brownian Motion and Related Processes

Bass Professors Bass and Burdzy propose to study some problems in the areas: boundary behavior of Brownian motion and harmonic functions, reflecting Brownian motion, diffusions on fractals, occupation times for random walks in two dimensions, exceptional points of planar Brownian motion, intersection local times for planar Brownian motion, iterated Brownian motion, and numerical results for Fleming--Viot processes. Brownian motion as studied in probability theory is a mathematical model of what one sees when one watches how cream gets mixed into coffee or how smoke diffuses through the air of a room. It is not surprising that the study of Brownian motion has applications to physics, chemistry, engineering, and quantum mechanics; however, it is also extremely useful for filtering noisy signals, studying the growth of populations, the behavior of the stock market, and a whole host of other applications. Professors Bass and Burdzy propose to study how Brownian motion and related objects can be used in solving problems that come up in mathematical physics. Many of these problems can be reduced to the solution of certain partial differential equations, which in turn can be resolved through the use of Brownian motion and other diffusions.